SBIR Phase II: Millimeter Wave Transceivers on Large Metamorphic Wafers

This Small Business Innovation Research (SBIR) Phase II project will develop an innovative low-cost W-band (70-80 GHz) single chip transceiver using the metamorphic wafer technology developed in Phase I, and efficiently integrating the various MMIC components. The low cost non-electronic beam FET processes, MM HEMTs, and initial chip designs developed in Phase I will be used for the development of the fully integrated transceiver in Phase II. The resulting new technology will enable the MMW industry to be cost effective to expand the commercial market to achieve the low cost and high performance required in the industry.

This project will enable enhanced performance and low cost consumer compatible volume production of automotive collusion avoidance radar systems, MMW tracking systems, and security radar and detection systems.